Applications of Micro-FTIR to Granulite Genesis

The PIs intend to develop and refine application of micro- Fourier transform infrared spectroscopy (FTIR) to fluid composition studies in both synthetic and natural fluid inclusions and fluid-buffering minerals. Comparison of FTIR and other spectroscopic techniques will be carried out for calibration purposes to improve methods of determining H2O-CO2, etc. contents. Compositions of fluids so determined will be used with other techniques (phase equilibria, stable isotopes, etc.) to understand conditions of high-grade metamorphism, and the compositions, quantities, and modes of migration for fluids in the deep crust. Specifically, they will address the controversy regarding the extent to which granulite facies metamorphism is dominated by partial melting vs. CO2 infiltration.